Center for Biomolecular NMR, Structure, and Design

This proposal requests funds to establish a Biological Facilities Center in state.of.the.art high.resolution NMR and computer graphics/molecular modeling methodologies to determine the 3D solution structure and dynamics of biomolecules. The Center will provide the infrastructure support for a diverse range ofprojects requiring NMR, molecular modeling, molecular mechanics/dynamics and perturbational free energy calculations to design new biomolecules. Initially the Center's focus will be on the study and design of proteins, modified DNA analogs and DNA binding drugs and proteins. In a number of projects, these "designed" biomolecules will be synthesized using established synthetic organic methods or through automated DNA or oligopeptide synthesizers. Alternatively, recombinant DNA methdologies will be used to genetically engineer mutant proteins. The Center will then determine the 3D structure of the designed biomolecules via 2D NMR nd distance geometry methods and compare the structure with that predicted by the calculations and modeling. Structure and activity of the designed biomoleculeswill be compared to better understand the biological activity of these biomolecules. This center will benefit a large and diverse group of researchers, estimated at about l20 faculty members. Thus, it has considerable potential for fostering interactions of unique combinations of multidisciplinary talent.